Integration of Advanced Electroanalytical Instrumentation into the Curriculum

An electroanalyzer will give students experience in the use of modern electrochemical instrumentation. Students in analytical chemistry courses will use the instrument to perform a polarography experiment, a cyclic voltammetry experiment, and a coulometry experiment. Students in an instrumentation course will perform experiments in differential pulse polarography and differential pulse anodic stripping voltammetry. The grantee will match the NSF award from non-Federal sources.